Aerosol and Cloud Chemistry at El Yunque Peak in Puerto Rico

El Yunque peak (elevation 1067 m) at the eastern end of Puerto Rico is frequently in clouds, so that cloud water and aerosols can be conveniently sampled from a ground-based platform, avoiding the cost and complexities of airborne sampling. The orographic nature of these clouds enables the establishment of empirical relations between the composition of pre-cloud and after-cloud aerosols and the composition of the cloud water, and therefore offers a potential for a better understanding of cloud chemistry. Sampling and chemical analyses of aerosols and cloud water at El Yunque constitute the main component of the proposed research. At the El Yunque site, cloud water, interstitial aerosols, and total (cloud + interstitial) aerosols will be collected. Cloud water and water-soluble aerosols will also be analyzed for anions and cations. Filter samples will be analyzed for trace elements, total carbon, and black carbon.